Riemannian Topology and Geometric Structures on Manifolds

DMS-0623676
Santiago Simanca

This proposal requests funding for the organization of the conference
"Riemannian Topology and Geometric Structures on Manifolds," to be held
at the University of New Mexico, Albuquerque, Oct. 10-14, 2006. The
objective of this meeting is to provide a forum for the discussion of
recent advances in the areas of positive sectional curvature, Kaehler
and Sasakian geometry, and their interrelation to mathematical physics,
especially M and Superstring theory. We intend to create and provide a
platform for the discussion of these fundamental ideas, the growth they
have experienced in the recent past, and the open problems of interest.

The conference plans to unite a range of worldwide experts, members of
the local group at UNM, and graduate students and young mathematicians
from across the country and beyond, to create an interactive environment for the discussion and understanding of advances in these various branches of mathematics and theoretical physics, for the firm grasp of their many recent results, and for the discussion of plaussible approaches
to attack a number of interesting open questions. Strong effort is to be made to encourage the participation of mathematicians from all over the nation, and in particular those belonging to the large minority population
of the Rocky mountain area. The impact of this activity is expected to be made long lasting by the prompt dissemination of its results, presenting
the scientific community with the Proceedings of the conference shortly
after its completion.